Purchase of a High-Performance Parallel Computer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Michigan State University will purchase a High-Performance Parallel Computer. This equipment will enhance research in a variety of areas including 1) studies of the electrodynamics of single molecule trapping; 2) studies of the transition states for the oxygen/water cycle in biology; 3) computational quantum chemistry of the electronic structure of molecules containing a transition metal; 4) research and education involving studies of materials; mechanisms, intermediates & spectroscopic analysis; 5) quantum theory of molecular electronic structure; 6) molecular properties and spectroscopy; and 7) reaction dynamics.

A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.